Cold Spring Harbor Laboratory Conference on The Cell Cycle, May 20-24, 1998, Cold Spring Harbor, New York

Abstract 9726950 Grodzicker The Cold Spring Harbor meeting on the Cell Cycle has been held bi-annually since 1992, and has become one of the most important international forums for discussion and criticism of progress in the cell cycle field. One of the highlights of the 1998 meting will be the progress in understanding the cell cycle controls on DNA replication. The meeting will also emphasize the impact that cell cycle research is beginning to have in understanding mechanisms that control cellular differentiation, programmed cell death, senescence and transcription. Platform presentations will be selected entirely from submitted abstracts, and strong emphasis will be place upon participation by graduate students and post-doctoral fellows. ***